The Role of Contrast Sets in Processing Natural Language Focus Constructions

This project examines the real-time processing of sentences with focus constructions within the framework of a representational theory of the semantics of focus. We will concentrate primarily on sentences and discourses exhibiting contrastive focus, with special emphasis on the theoretical notion of a contrast set, the group of alternative entities, properties, etc., that something in the assertion in the sentence implicitly stands in contrast to. Existing literature clearly establishes that readers and listeners devote extra attention to focused words and phrases. However, to our knowledge, there has been little psycholinguistic work to date conducted within the context of an explicit representational theory of focus. Consequently, fundamental questions about the informational contribution of contrastive focus, and its consequences for on-line language processing, have not yet been explored. The research that we are planning investigates the processing of sentences and discourses exhibiting contrastive focus, as understood within the context of current semantic theory. The most basic question is whether contrast sets are indeed computed during the course of understanding an utterance marked with focus against the background of a discourse context, and, if so, when are they computed, and how are they computed (that is, what factors govern their determination). We will also examine how they are used in managing attention (and salience of entities) in discourse processing and interpreting referential expressions. Most of these questions will be examined using a new experimental paradigm in which subjects follow spoken instructions to manipulate objects in a workspace while their eye-movements are monitored using a video-based camera system. Preliminary work using the visual world paradigm has demonstrated that listeners seek to establish reference incrementally, making eye-movements to relevant objects that are closely time-locked to referential expre ssion in the instructions. Subjects typically make an eye-movement to an object prior to reaching for it and the programming of the eye-movement to the target object occurs, on average, within several hundred milliseconds of the word in the instruction that makes that object unique with respect to the relevant visual alternatives.